Marywood College Connection to PREPnet/NSFNET

Marywood College is establishing a connection to NSFNET via a 56,000 bits per second line through the PREPnet mid-level network. The connection enhances collaborations of campus researchers with colleagues in several fields such as dietetics, psychology, business and managerial science, social sciences and mathematics, and enables on-line access to remote bibliography databases and supercomputers. This award funds part of the costs for two years.